Summer Institute in Scientific Computing

In response to a Project Solicitation, the Consortium for Scientific Computing, representing the John von Neumann Center, submitted a proposal to conduct a Supercomputer Summer Institute in 1987. This proposal and eight others were evaluated by a review panel. CSC proposes a three-week Institute for 25 senior researchers during the period July 27 to August 14. Attendees will provide some of their own support and will be given an early account on the JVNC Cyber 205 supercomputers for familiarization. Terminals and high-power workstations of various kinds will be available as well as consulting help and office space. Lectures in various aspects of advanced computing will be given, with special emphasis on fluid and plasma dynamics, computational chemistry, and computer science and supercomputing. 25 additional researchers located near the JVNC will attend at no extra cost. Reviewers found both good and bad aspects to this proposal. Students will be expected to have a degree of expertise on supercomputing prior to attending; the focus will be more on the scientific aspects of computational science than on the nuts and bolts of supercomputer usage. With the right attendees, this could be an exciting intellectual forum. The panel was concerned with the high cost of the proposal, and the need for support personnel and terminals for so many (50) attendees. The Principle Investigator has agreed that the 25 local attendees will attend lectures only, with no supercomputer access or some machines to the JVNC. Finally, the PI's salary will not be charged to the grant. These savings have reduced the cost from $163,000 to a more reasonable $63,000. In addition, an undergraduate component of $7000 has been proposed. The Centers Program recommends support of a Supercomputer Summer Institute at the John von Neumann Center in the amount of $70,000.